Computerized Acoustic Analysis Equipment

This grant supports the purchase of two speech analysis stations, each consisting of a Macintosh PowerPC running Soundscope software. A single laser printer and tape backup system serve both stations. This equipment will be used by the Principal Investigators and several auxiliary users, primarily graduate students, for the acoustic analysis of speech data, experiments in speech perception and statistical evaluation of findings. The objectives of purchasing this equipment are to support a specific research strategy in linguistics, phonology in particular, and to provide speech analysis facilities for faculty and graduate students in the Linguistics Department. We aim to encourage detailed acoustic and statistical investigation of language data in the service of developing, testing and extending quantitative models of phonological behavior. Two central questions in phonology are i) what constitutes phonology as opposed to phonetics and ii) how do the two domains interact. Recently, considerable advances in modeling have been made through well-designed experimental and instrumental analysis of processes that are hypothesized to be phonological in some languages but have a phonetic counterpart in others. Comparison of findings has led to a notion of phonological 'target' as opposed to phonetic interpolation, each with a specific phonetic profile. Such work provides a starting point for differentiating phonetic from phonological processes. We hope to contribute towards this developing metric by modeling varying data. The projects to be undertaken are designed to investigate the interaction between phonetics and phonology by comparing findings from a broad base of data from diverse languages (Bantu, Salish, Russian, English, Japanese). The phonological processes under investigation include tonal behavior, the realization of laryngeal features and the phonetic basis of sound change and loan word phonology.